Mentoring Women in International Research Collaborations (MWIRC) in STEM

Abstract
The American Association for the Advancement of Science (AAAS) Directorate for Education and
Human Resources Programs and the AAAS International Office are proposing to implement a
project call Mentoring Women in International Research Collaborations (MWIRC) in STEM.
The objective of this proposal is to foster the participation of U.S. female scientists and engineers
in international science, technology, engineering, and mathematics (STEM) research and
education collaborations. This project will increase the knowledge and understanding of
STEM faculty and their mentees in regards to developing, implementing, and planning
international research and education collaborations. In particular, this project will help STEM
faculty better understand international research priorities, resources for planning and
developing international research collaborations, and guidelines for U.S. STEM researchers
traveling and conducting research abroad.